Open-Path FTIR Measurement Studies of Biomass Burning Emissions

NSF Proposal: ATM-9631219 Title: "Open-path FTIR Measurement of Biomass Burning Emissions" PI: Robert Yokelson, University of Montana, Department of Chemistry Abstract Biomass burning injects significant amounts of trace gases into the regional and global atmosphere. Most of the chemical species emitted by biomass fires are sufficiently reactive and are not well-mixed in the atmosphere. In addition, fire emissions and emissions-processing of smoke plumes vary considerably at different stages of biomass combustion within a single fire event, and also, for distinct types of biomass vegetation. This project focuses on emissions characterization of smoke using an open path fourier transform infrared instrument (OP-FTIR) to measure trace gas chemical species. The OP-FTIR spectroscopic instrument will operate in the fire research laboratory at the University of Montana and will measure gaseous products from fuel-specific biomass fires. The instrument will be modified and tested for deployment on aircraft platforms and for ground-based studies of large-scale biomass fires. The OP-FTIR spectroscopic measurement technique will improve emissions estimates of trace gases due to biomass fires, and will expand the range of chemical compounds that are identified and measured in smoke. ATM-9631219